SBIR Phase I: Development of High Efficiency Thermoelectric Materials for Sub 200K Space Applications

The broader impact/commercial potential of this Small Business Innovative Research (SBIR) Phase I project will advance the state-of-the-art in low temperature thermoelectric devices for space applications enabling advanced space travel as well as improvements to satellite wireless and worldwide mobile internet availability. With the increased interest in space exploration from industrial efforts, a significantly improved low temperature thermoelectric module could capture a sizable portion of the rapidly growing thermoelectric module market which is estimated to be ~$1 Billion by 2024. Significantly improved low temperature thermoelectrics would also open the door for the use of these devices in other low temperature thermal management systems, where the poor efficiency of cooling technologies operating in the cryogenic regime have been a major challenge.

This Small Business Innovative Research Phase I project aims to improve the efficiency (ZT) of thermoelectric cooling modules using advanced materials and a novel module design concept. Bismuth-antimony (BiSb)-based single crystal materials with applied magnetic fields have long been known as the highest performance materials for sub 100K applications but they have not yet found commercial utility due to a variety of challenges. The research effort aims to address these challenges and develop both p-type and n-type single crystal BiSb based alloys with ZT > 0.4 at 90 K and application of less than 1 Tesla magnetic field, which would be a four-fold improvement in efficiency at sub 100 K compared to current state of the art.